READING RAINBOW

Reading Rainbow is an eighty (80) part PBS children's series (15 of which are science programs) that entices children five to eight years old to read good books, thus addressing the national tragedy of more and more young Americans reading less and less. The Emmy award winning series employs television to sell the joy of science and reading to young viewers. This proposal seeks funding for five additional Reading Rainbow programs which will focus on scientific themes. These programs will be added to the previously funded science programs (22) to become part of the on-going series in demonstrating to children how science is integrated into all aspects of our lives. The Reading Rainbow series premiered in the summer of l983 to phenomenal critical and popular acclaim. In the fall of 1990, Reading Rainbow expanded ta a year round, daily schedule-- after having spent seven years as a summer series. According to formal studies, the science shows are of great interest to children and pique children's interest in related science topics and books. The series is no in its tenth season and its popularity has grown among young viewers as well as with parents.